Fifth U.S.-Japan Workshop on Earthquake Disaster Prevention for Lifeline Systems

The purpose of this project is to (1) organize and conduct the Fifth U.S.-Japan Workshop on Earthquake Disaster Prevention for Lifeline Systems, and (2) initiate a joint research activity between U.S. and Japanese investigators interested in the earthquake performance of telecommunication systems. This Workshop will be held in Tsukuba, Japan in the fall of 1992. The Workshop is intended to provide an opportunity for researchers, designers, and construction specialists to exchange discussions and ideas on the current state-of- the-art in seismic risk assessment and design for lifelines, what future directions should be pursued to improve current methods, and what mutual programs between the U.S. and Japan can be initiated so that the most effective use of available information is maximized. A joint U.S.-Japan database on seismic performance of telecommunication facilities will be developed for use by U.S. and Japanese investigators. This project is a part of the U.S.- Japan Natural Resources (UJNR) Program.